A Geometrical and Experimental Investigation of SimultaneousForce and Motion Control of Robot Manipulators

This project focuses on the development of a general theory, based on screw theory, for the simultaneous force and motion (hybrid) control of robot manipulators. Successful conclusion of this research will enhance a manipulator's ability to perform compliant motion tasks including industrial assembly, machining, contour tracking, coordination of multiple manipulators grasping the same workpiece, control of robots with less than six degrees of freedom, and control of robots near singular configurations. The fundamental problem addressed here is that given the requirement to control specific axes for force, while simultaneously controlling the others for position, how must the problem be formulated and error signals generated such that the error correction signals sent to the actuators are consistent and provide a stable response. Current research on the problem has focused on supplementing environmental constraints with a set of artificial constraints. Although promising, the approach when implemented has demonstrated instabilities. It is not clear if the instabilities are kinematic in nature or a function of the implementation approach. This project assumes a kinematic difficulty and attempts to resolve the kinematic issue through an appeal to screw theory. The hybrid control theory developed will be general in the sense that it must provide a solution for simultaneous motion and force control of an end effector performing any constrained tasks, and furthermore, will be invariant to translation of origin, change of scale, and change of coordinate frame. The theory will be evaluated by means of laboratory experiments.